Acquisition of an Image Analysis System

The acquisition of a state-of-the-art Image Analysis System has strengthened the Metallurgical Engineering program at Lafayette College by allowing the collection, quantification, and analysis of data obtained from a magnified optical image of materials under investigation, with applications in a variety of engineering and scientific fields. The system is used in undergraduate laboratory exercises in metallurgical engineering, in an interdisciplinary course in analytical methods, and in undergraduate Honors projects in science and engineering. This project improves undergraduate education in science and engineering, particularly in the areas of computer acquisition of experimental data and the statistical analysis of data.